The Black Hole Experiment Gallery: Testing the theories of gravity and of free-choice learning

0638963

The Smithsonian Institution Astrophysical Obervatory will develop the Black Hole Experiment Gallery, a 2,500 sq ft traveling exhibition that will let visitors explore recent breakthroughs in astronomical research on black holes. Intended audience impacts are to deepen understanding of the nature of scientific discovery, enhance interest in and knowledge of our unfolding universe, and foster appreciation of a broader view of science. The exhibition will be accompanied by a portfolio of educational materials and programs, and website.

The exhibition will provide a testbed of emerging networking and personalization technologies. Based on partnerships with community-based programs in Oakland, Baltimore, and Boston, underserved teens will assist in the development of exhibits and programs. A video case study for science museum staff professional development will document the exhibition development and decision-making processes used. This exhibition will travel to 9 to 12 science centers on a national tour, reaching some 1.5 million visitors.